ROW: A Biophysical Model of the Population Dynamics of Sceloporus

Research will focus on the role a nest's temperature and moisture has on egg development in the striped plateau lizard, Sceloporus virgatus, in Arizona. This field study will provide the first data on environmental conditions in natural nests for any lizard and should yield fundamental insight into the importance of the nest environment for successful development and hatching. Data on nesting and egg survival is critical to understanding a species behavior, reproduction, and life history. Such knowledge can improve husbandry procedures used for raising reptiles in captivity, an important consideration with the increasing number of threatened and endangered species.